EAGER: Continuous, Catalyzed Thermopower Wave Generators Powered by Renewable Biofuels: A New Fuel Cell Concept

Abstract

#1239073
Strano, Michael S.

Technical Basis

Portable energy storage and delivery is the cornerstone of modern transportation systems and the of the proliferation of portable electronic devices and is a rapidly growing field. Additionally, the development of the newest autonomous and mobile sensors, robots, and off-grid wireless networks, particularly at the micro- and nanoscale, is often hampered today by the lack of high power density energy systems of similar size. Each of todays portable energy technologies has its distinct shortcomings. Batteries are the most familiar form of electrical energy storage, but electrochemical energy density is fundamentally limited compared to storing energy in the chemical bonds of fuels. In addition, batteries slowly lose their charge over years, making them less desirable for long-term energy storage. Supercapacitors offer substantially higher power density (in weight and volume terms), but at the expense of energy density. Moreover, they cannot hold their charge even as long as batteries. Fuel cells and engines can use the large energy density of chemical fuels but are more complicated to fabricate at the small scale, so their power density has been limited so far. Professor Michael Strano of the Massachusetts Institute of Technology has performed some initial studies on an alternative energy device that offers the possibility of supplanting these existing devices.Thermopower wave based energy devices may dramatically increase the energy density of portable power devices more than a factor of 10, with other advantages such as zero storage losses and charge decay.

High-conductivity scaffolds, like carbon nanotubes (CNTs), direct a hot chemical reaction wave along their length; the wave also pushes charge carriers to create a high-power pulse of electricity. This fast wave means that thermopower waves can often outperform conventional thermoelectrics using static thermal gradients in terms of power density and may not have the same limits on efficiency (usually about 1-5%)according to Strano. The concept to be tested is whether thermopower fuel cells can be created, which could be operated to generate power continuously; previous devices could only make electrical pulses shorter than a second. This project introduces the new aspect of the addition of metal catalyst nanoparticles to the CNT thermoelectric conduits. By focusing on fuels like formic acid and methanol that can be biologically derived, these generators can use renewable energy sources.

This is an ideal EAGER project in that several high risk aspects must be successfully demonstrated. First, wave propagation using formic acid and alternatively methanol must be demonstrated using low- to medium-activity catalytic materials for their decomposition along the length of thermal conduit materials, including carbon nanotube fibers, inorganic nanowires, or grapheme films. Advances in theoretical understanding of these waves will accompany this effort. The choice of catalyst(s) must optimize the activation energy; too low and the fuel will react spontaneously without being controlled by the nanotubes, too high and the required initiation energy will be too large, sapping the efficiency. For liquid-fueled-TWGs to be practical, more common metals like Au, Fe, or Cu must be the active catalyst metal. Beyond this, a target would be to fabricate a working device and demonstrate extended operating life. This is clearly the high risk-high potential return project envisioned for EAGER awards.

Broader Impacts

For this project, the PI intends to utilize undergraduate and graduate researchers, as a means of fostering diversity in Engineering. The PI notes that the experiments that make up this project seem to be well suited for undergraduates, who adapt and learn quickly how to prepare thermopower wave substrates, and learn how to use the instrumentation. The PI has extensively worked with a large body of undergraduate students in the past, many of whom are gender and racial minorities. It is difficult to develop these aspects in a short EAGER project, so the PI is to be commended for making this effort.